AF: Small: Metric Information Theory, Online Learning, and Competitive Analysis

There will always be limitations on human ability to collect and process data
about systems, environments, and populations. Algorithmic agents act in real
time based on partial, noisy information about the world, and the elimination
of uncertainty through "learning" must often be balanced against the
optimization of some objective. The cost of choices made in the present must
be weighed against the risk that those choices might incur further costs in
the future. Information theory provides a rich and fertile framework for quantifying and
managing uncertainty. The situation becomes more subtle when distinct pieces
of information carry differing costs. Consider one's 401(k) balance at
retirement. While the least significant digit is most uncertain, there is
substantially more cost associated with incorrectly predicting the value of the
most significant digit.

This project concerns probability spaces endowed with a metric that describes
the associated cost of uncertainty. Designing algorithms to optimize in such a
framework is intimately connected to having a robust theory of metric
information. Moreover, the settings of online optimization and competitive
analysis provide a deep and varied set of formal models in which to apply these
methods and test their efficacy. In an area where algorithm design and
analysis have often been seen as ad-hoc and unstructured, the framework
underlying this work contends that both algorithms and their analysis can be
derived readily from the right set of underlying definitions. Indeed, many
problems in this area have been researched for 30-40 years, and
yet preliminary application of algorithms and analysis tools from online convex
optimization--in the context of metric probability spaces--has already achieved
a sequence of breakthroughs. The team of researchers will develop the
corresponding theory, guided by a collection of prominent open problems, with
the ultimate goal of understanding in what circumstances, and to what extent,
one can limit the detrimental effects of uncertainty on optimization.